2009 Oceanographic Instrumentation, R/V Kilo Moana Multibeam Sonar Upgrade

University of Hawaii requests funds to purchase oceanographic instrumentation and equipment in support of the multidisciplinary NSF/UNOLS projects to be undertaken on R/V Kilo Moana, a 185’ general purpose research vessel operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet.
The requests, in order of priority are:

1) EM122 Multibeam Upgrade

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.